Geophysical Image Processing in a Hybrid Computing Environ- ment: Upgrades to Distributed Workstation/Supercomputer Facilities for Analysis of Large Datasets at Cornell

This award provides 50% funding for the acquisition of a computer system to be installed and operated in the Institute for the Study of the Continents at Cornell University. The University is committed to providing matching funds. The equipment will consist of a high-performance workstation, high-resolution plotter, and large capacity data storage. The Institute for the Study of the Continents provides basic computer resources for geoscience research at Cornell. Workstations are linked to the Cornell Supercomputer Center. The new system will be used in this capacity in computing intensive projects of the Consortium for Continental Reflection Profiling, the Andes Project, and the Global Basin Research Network.